Reasoning About Specifications of Computation

Proposal Number: 9912387
PI: Miller, Dale A
Institution: Penn State University, University Park
Title: Reasoning about Specifications of Computation

Computational systems are often given their meaning in terms of
operational semantics, and these, in turn, can be formalized in
meta-languages based on logics or type systems. Specifying
operational semantics in such meta-languages allows formal results
about semantics to be derived by reasoning within the meta-language:
for example, type soundness for a programming language might be
derived as a formal consequence from the theories specifying typing
and evaluation semantics. One challenge in developing a framework for
such reasoning is the proper treatment of induction when higher-order
abstract syntax, an elegant and declarative treatment of object-level
abstraction and substitution, is used to encode syntax. Current
approaches to inductive reasoning requires that syntax be coded using
the first-order techniques of algebraic terms, which itself requires
clumsy encodings for binding and substitution. A meta-logic that can
be used to reason inductively about judgments coded using higher-order
abstract syntax will be developed: this meta-logic will be an
extension of a higher-order intuitionistic logic that admits induction
and a notion of definition. A prototype system that implements this
logic and uses it to reason about computations specified in
operational semantics will be developed.